Hot-Drawn Fiber-Reinforced Thermoplastic Wire

The project deals with a novel process of producing fiber reinforced thermoplastic wire. Such wires, in addition to achieving more flexibility in manufacture and repair, provide improved fatigue strength, impact resistance and resistance to chemical attack. The greatest barrier to the use of high strength organic fiber reinforced plastic (FRP) wires in critical structural applications is high cost and large uncertainties associated with the quality of the product. Nearly 100% ultrasonic or other NDT is required to assure quality. In contrast, metal wires are produced by the mile and accepted on the basis of simple tests on a small sample. The quality of the metal wire is assured by closely controlling the chemistry and by utilizing a very reproducible manufacturing process. The PI proposes a similar concept for producing fiber reinforced wires. The following procedure is used. Yarns of reinforced fibers and the matrix are commingled in proper proportion to control the fiber/resin ratio. The mixture is then heated close to the melting point of the matrix and pulled through a hot die. The wire is cooled at a rate appropriate to achieving the desired degree of crystallinity in the matrix. Wires produced by this method have many applications. Chief among them are mooring lines for deep ocean arrays of instruments.